Dynamics Laboratory

A new undergraduate sequence in Dynamical Systems is being developed and selected topics from dynamics are being introduced into existing courses in Differential Equations, Geometry, and Analysis. The new course and affected courses make extensive use of a new dedicated computer graphics laboratory. This laboratory enables students to experiment with dynamics and in particular explore boundaries and domains of attraction, and Mandelbrot and Julia sets. The laboratory includes 6 80386-based PC's, one 80386-SX PC laptop for classroom and outside presentations, and a laser printer.